International Symposium on Head-Neck System to be held in Fontainbleau, France: July 17-20, 1989

This action is to help support the travel costs of fourteen U.S. scientists so that they may present scientific papers at an international conference which focuses on neural mechanisms of head and neck movements. The meeting will be held in Paris, France and will be attended by leading scientists in the fields of eye movement physiology, biomechanics, rototics, embryology, evolution, and comparative aspects of the head.neck movement systems. By bringing together this diverse group of scientists, more opportunities will be available for cross.fertilization of scientific fields. This planned gathering should enlarge the pool of scientists interested in head movement control and establish a conceptual and collaborative umbrella.